Recognising curved surfaces from their outlines

This is the first year of a three-year continuing award. The research uses the concept of the dual surface to investigate theoretical and experimental questions related to recognizing curved surfaces. The project is investigating classes of surface for which the outline yields the complete projective geometry of the surface (including algebraic surfaces, and others if they can be found to exist), and classes of surface for which the outline yields some, but not all projective invariants. The theoretical investigation will be aided by algorithm implementation for recognition of a wide range of surfaces using projective invariants measured from the outline.